Multiscale Algorithms for Wave Propagation

Most scientific processes and their related mathematical models have important features in a wide range of time and length scales. Some typical examples related to the computation of waves are propagation and scattering of high frequency waves and interaction of the wave field with complex media. Discretizing these problems directly at the finest scale and solving the resulting systems with standard numerical algorithms inevitably leads to an enormous computational problem with unacceptable long computation times and large memory requirements. Building on our previous experience in multiscale algorithms, we plan to design, implement, and analyze novel algorithms for problems in high frequency wave propagation and related fields. Such problems are challenging since many well-known techniques, such as multigrid and standard fast multipole methods have limited efficiency. We will focus on the following three topics: (1) high frequency acoustic and electromagnetic scattering, (2) Gaussian beam methods for high frequency wave and Schrodinger equations, and (3) homogenization of complex media with multiple reiterated scales.

The overarching theme of the research presented in this proposal is to exploit the geometric structures and asymptotic features of a variety of multiscale problems. The proposed research will have direct impact in several application fields. These algorithms will help us to solve large scale complicated scattering problems on the scales of thousands of wavelengths as in antenna design for wireless communication. We will also better understand wave propagation in composite materials with applications in exploration seismology. On the education side, the development of modern numerical algorithms and softwares requires researchers to understand different aspects of computational mathematics. We plan to use this grant to support two graduate students.
This will not only help training a new generation of researchers who master algorithmic design, mathematical analysis, and software development, but also promote the awareness and interests in computational mathematics among undergraduates and underrepresented groups. We will work with researchers from industrial and government laboratories to disseminate ideas and deliver operational softwares for challenging applications.